Public Service Advertising Campaign

This National Science Foundation grant was designed to expand NACME's existing information program to reach more teachers, counselors and parents of minority students at the junior and senior high school levels and, ultimately, to provide more and better information to the students themselves. Materials produced under the grant to convey the message that minority students can find rewarding, attainable careers in mathematics and science-based fields, that financial aid is available to help students prepare for such careers, that there are specific academic prerequisites for students interested in studying engineering at the college-level, and that there is a growing network of programs to encourage the study of engineering and related technical fields among under represented minority students. Specifically, this funding was used to develop, produce and distribute: "Engineering, Your Key to the 21st Century" 30,000 brochures with companion posters targeting junior high school students, parents and teachers. "Financial Aid Unscrambled: A Guide for Minority Engineering Students" 30,000 books targeting high school seniors, teachers, guidance counselors and parents. "Students Guide to Engineering Schools" 30,000 books targeting high school students, teachers, guidance counselors and parents. "MEPs/USA: The Directory of Precollege and University Minority Engineering Programs" 5,000 directories for guidance counselors, teachers, program directors and other participants in the field.